RUI: A Longitudinal Study of Wh-Movement Types in the Grammars of Young Children (REU Supplement)

ABSTRACT The Principal Investigator will interview 30 to 40 English- speaking 3 to 6 year old children longitudinally during a two- year period, in order to investigate wh-movement types in their grammars. Several recent studies using comprehension and production tasks have suggested that English-speaking children's grammars allow types of wh-movement that do not exist in adult English. These are constructions in which a wh-phrase that appears in a lower clause at S-structure can take higher scope (over the whole sentence). Such constructions occur in other adult languages, such as German and Romani. An in-depth investigation of these constructions in children's grammars will compare their properties with those of German and Romani. In this way, the project should contribute to the understanding of both the children's grammars and the adult grammars.